SHF: Small: Reasoning Rigorously About Probabilistic Programs

As society becomes increasingly reliant on software systems to help
plan medical treatments, predict the future climate, guide investments
in financial markets, and mine noisy data to infer scientific facts,
the risk that uncertainties in the input data and defects in the
software can create false alarms, or a false sense of security, is
high. This project will help address the gap between highly complex
probabilistic programs and tools for reasoning about them.
Probabilistic programs arise in important everyday applications that
include medical, engineering and financial risk analysis/decision
making systems, large-scale simulations, data mining, sensor noise
filtering algorithms for cyber-physical systems, and randomized
algorithms. The presence of input uncertainties and randomness built
into the behavior of the programs can cause undesirable behaviors and
variable performance. Therefore, it is important to accurately
predict the probabilities of such undesirable behaviors, and expected
values for important performance measures.

This project investigates automatic program analysis tools for
probabilistic programs that will model the sources of uncertainty
appropriately, and infer bounds on the probabilities of assertions and
expectations of performance measures. Two flavors of inference
procedures are being investigated: symbolic procedures
combining decision procedures with the theory of martingales and
statistical procedures using statistical hypothesis testing
methods to infer probabilistic annotations with statistical
guarantees.